Collaborative Research: IIS: RI: Medium: Lifelong learning with hyper dimensional computing

The use of artificial intelligence (AI) has enabled computers to solve some problems that were out of reach just a decade ago, such as recognizing familiar objects in images, or translating between languages with reasonable accuracy. In each case, a specific task (such as "translate spoken Mandarin into spoken Spanish") is defined, data is collected (consisting, say, of utterances in the two languages), and an AI system is trained to achieve this functionality. To further expand the scope of AI, it is important to build systems that are not just geared towards highly-specific and static predefined tasks, but are able to take on new tasks as they arise (new words, new accents, and new dialects, for instance). This is often called "lifelong learning", and it means, basically, that the systems are adaptive to change. This project develops an approach to lifelong learning using a brain-inspired framework for distributed computing, yielding machines that potentially can solve tasks more flexibly and consume significantly less power than traditional AI systems. It will: (1) advance the ability of AI systems to handle changing environments, (2) enable a host of new low-power AI systems with applications such as environmental sensing, (3) strengthen mathematical connections between computer science and neuroscience, and (4) serve as the basis for educational and outreach activities.

This project will develop lifelong learning within the framework of "hyperdimensional computing", a neurally-inspired model of computation in which information is encoded using randomized distributed high-dimensional representations, often with limited precision (e.g., with binary components), and processing consists of a few elementary operations such as vector summation. We will build HD algorithms for some fundamental statistical primitives -- similarity search, density estimation, and clustering -- and then use these as building blocks for various forms of lifelong learning. These will rest on mathematical advances in (1) the analysis of sparse codes produced by expansive random maps and (2) algorithmic exploitation of kernel properties of high-dimensional randomized representations. Our algorithms will be implemented in hardware, deployed on a network of low-power sensors, and evaluated experimentally in a lifelong learning task involving air quality sensing.